Dissertation Research: Origins of Public Health Policy

Ms. Michelle Anne Laughran, working under the direction of Professor Shirley Roe, is examining the rise of efforts on the part of cities and other governments to regulate human behavior in order to protect human health. The degree to which a government might optimally intervene is of constant concern. The United States, for example, had a dismal failure in its attempt to criminalize alcohol. Use of alcohol in the United States was not stopped while criminal behavior rose dramatically in order to meet the demands of citizens wanting to drink. The net effect was a broad scale disrespect of the law. Given this experience, Congress and the Administration is currently debating how far it should go to regulate smoking. One approach, short of prohibition, would be taxation; but even here, too high a tax will lead to smuggling and other methods of subverting the law. Regulation of public health arose in the modern world with the efforts of cities in Northern Italy to prevent the plague. Ms. Laughran is examining the developments in Venice where a civil magistrate for public health quickly expanded his powers to include supervision of begging, prostitution, hostelries and the city's poor population. By tracing how this magistrate for health expanded his power over such a broad spectrum of human behavior and the effects this expansion had both on public health and the operation of government, Ms. Laughran promises to illuminate both the beneficial and the detrimental aspects of public health policy.